Support for participants of the 4th International Conference on Multiphase Flow (ICMF-2001)

Abstract
CTS-0100860
E. E. Michaelides, Tulane University

The International Conference on Multiphase Flows will meet for the fourth time in New Orleans, from May 27, 2001 to June 1, 2001. Its purpose, every third year, is to bring together multiphase flow researchers from about fifty countries and allow these scientists and engineers exchange ideas on the recent developments in the field. This is a special opportunity for the younger members of the community. It is expected that their will be a projected 600 participants.